Grostat V: Workshop on Grobner Bases and Statistics

This award provides funds to partially support the international workshop Grostat V on applications of computational commutative algebra to statistics. The workshop will take place from September 4 - 6, 2001, at Tulane University in New Orleans. This is the first workshop of its kind in the United States, and will bring together researchers from Europe and the United States from the fields of algebra and statistics. The use of Grobner bases in data analysis and design of experiments forms the main focus of this interdisciplinary workshop. Approximately 20 talks will be given, including two invited lectures. A primary objective of the workshop is to promote this area of research in the United States. The workshop is also expected to have an immediate positive impact on graduate education in the Gulf South region.